Modeling the Long-Term Turbulent Circulation of the Arctic Ocean and its Sea Ice

The investigators will develop an Arctic Ocean circulation model coupled to a sea ice model on two spatial grids. The model numerical will allow the researchers to investigate the input of Pacific Ocean water and the outflow of Arctic Ocean water to the Atlantic so that not only the circulation within the Arctic Ocean is simulated but also the important inputs and outputs are derived. The model should produce a very realistic circulation that may be examined for changing climatic conditions to determine the climatic effect on both Arctic Ocean circulation and the effects of that circulation on the North Atlantic Ocean. The model will provide a framework for other studies in the Arctic that require a predictive capability for ocean circulation in areas of the Arctic ocean where no observational data exists.